Acquisition of a Three-Dimensional Microscopic Image Analysis Systems

9500119 German A three-dimensional microscopic image analysis system will be purchased with funds partially supplied by this grant. The equipment to be purchased will allow the dissection and analysis of virtually all engineering materials on a layer by layer basis using a microtome with micromilling capabilities. The image analysis system will then reassemble a series of two-dimensional planer images into a three-dimensional construct that will show the microstructural features in the original environment. The situation envisioned is similar to the modern CAT scans used in medicine. This should provide insight into phenomena that are poorly understood at present. ***